Evaluation of Microflocculation Due to Prezonation

This award is for funds to support research on the investigation of a mechanistic basis and to develop a model for the microflocculation observed with the application of ozone as a preoxidant in water treatment practice. The research will address microflocculation due to preozonation highly on colored, low alkalinity, low turbidity source waters. The influence of four mechanisms will be investigated. These are (a) rearrangement of humic material particle size distributions leading to more efficient coagulation and flocculation, (b) recombination of humic ozonization degradation products via hydrogen bonding, (c) oxidation and separation of metals complexed with humic material and their subsequent action as coagulants, and (d) combination of dissolved bulk solution metals with complexed metals to act as coagulants or even to precipitate. The principal investigator is highly qualified to perform the proposed research. A two year continuing grant is recommended. This award is for $76,100 for the first year.